Mathematical Sciences: Universal Algebra and Lattice Theory

The long range goal of this research is to provide a unified treatment of various algebraic structures consisting of a Boolean algebra with additional operations. A major effort will be made to develop within that framework an interpretation of computing programs and of related concepts that represents more faithfully the operational properties of these concepts than does the notion of a dynamic algebra. This will lead to other questions of general interest concerning various classes of operators on a Boolean algebra. This research is at the broad interface of logic, algebra and computer science. The subject of universal algebra and lattices will be studied for their own right and for their applications to theoretical computer science.